Acquisition of Network of Graphics Workstations and a File Server

This network of graphics workstations, file server and associated graphics will support the condensed matter theory research group, providing computer visualization and windowing capabilities. Research programs include Quantum Monte Carlo methods applied to liquid and solid He, atoms and molecules; calculations of dynamical structure factors; molecular dynamics for the study of new and novel vibrational excitations in periodic anharmonic lattices; first-principles electronic structure methods combined with molecular dynamics for the investigations of properties of amorphous and crystalline phases of semiconductor bulk samples and surfaces; and analysis of scanning tunneling microscope and atomic force microscope images of biopolymers.